U.S.-Germany Cooperative Research: Next-generation Unified Theory for Valence-level and Core-level Photoemission

9815358
Fadley
This award supports the PI, Charles Fadley, and a postdoctoral student from the University of California-Davis in a collaboration with Wolfgang Schattke of the Institute for Theoretical Physics and Astrophysics at the University of Kiel, Germany. The research focus is on theoretical and computational analysis of photoemission that incorporates the response of electrons in an atom's core as well as in the outer shell. The project combines the complementary expertise of the German group in outer-electron emission theory with the U.S. groups expertise in core-electron excitation phenomena. The results of the research will be of great importance to the development of advanced materials for application in many technology fields. There is also extensive involvement of junior researchers in the international exchange of personnel.